ViC*: A Compiler and Runtime System for Out-of-Core C*

The proposed project completes the implementation, already underway, of the ViC* compiler and run-time system. The compiler translates the data-parallel language C* with some data explicitly declared to be "out of core." Out-of-core data reside on a parallel disk system. The compiler produces C for a distributed-memory multiprocessor. It adds I/O and library calls to access data on disk, and it also produces virtual processing loops to allow each physical processor to be shared by multiple parallel-variable elements. A ViC* program will run significantly faster than one run with traditional sequential virtual memory on the individual nodes of a MIMD machine. Unlike demand paging, ViC* will take advantage of aggregate data-parallel operations by optimizing away many I/O calls. Moreover, the ViC* run-time library will execute optimal parallel-disk algorithms that have appeared in the literature recently. There are two major components to ViC*: a compiler and a run time library. Both are designed to minimize the number of parallel disk accesses made by the executing program. The runtime library will implement the entire C* library for both incore and out-of-core parallel variables. It will run on any platform that supports PVM and any of the following filesystem interfaces: Scotch, Galley, Scalable I/O Initiative API, and UFS for multiple disks. ***